Upgrading of a SUN-Workstation

This award provides one-half the funds required to upgrade a SUN 3/160 monochrome workstation to a SUN 4/260 color workstation with additional random-access memory (RAM). The Department of Geology and Geophysics at the University of Minnesota will provide the remaining funds needed. The upgraded workstation is necessary to support computationally intensive research in the Department of Geology and Geophysics on mantle convection, postglacial rebound, magma dynamics, molecular dynamics and double-diffusive convection. The color workstation is needed for visualizing time-dependent models of convection in the mantle, and the added RAM will be used in developing numerical algorithms for large-scale supercomputer applications and processing data generated from supercomputer calculations.